Dissertation Research: Relational Business Contacts Between U.S. and Foreign Negotiators

This project involves the dissertation research of a student of cultural anthropology at Northwestern University. The student will examine how US and Japanese companies in the midwestern US negotiate with each other. Using in-depth exploratory interviews with 25 local expert representatives of US companies, the student will establish a list of vital topics. These topics will then be used to analyze 6-8 complete cases of contract formation. The goal is to analyze the cultural context of the business negotiations to show how general principles of contract law are redefined to fit local cultural and situational concerns. This research is important because international trade is increasingly vital to the economic health of US communities. Advances in our understanding of how cultural factors influence bargaining can help US actors deal with foreign counterparts